Conference: Variational Methods: Open Problems, Recent Progress, and Numerical Algorithms, June 11-14, 2002, Northern Arizona University

0124121
Neuberger

This grant will support a conference on Variational Methods: Open
Problems, Recent Progress, and Numerical Investigations to be held
June 11-14, 2001 at Northern Arizona University in Flagstaff, Arizona.
The term Variational Methods in the title refers to a rich area of partial
differential equations and a family of methods historically used to
investigate them. Many famous mathematicians have made significant
contributions in the last century to this area, but it is widely held that the
time is ripe for a new round of discoveries to be made. Solutions of these
problems typically rely on tools from a wide range of mathematical
areas and potentially have a significant impact on the study of important
physical applications. The purpose of this conference is to assemble as
many experts as is possible in this research area, in order to discuss and
catalog the area's most important open (unsolved) problems and the
methods that might be used to attack them. Numerical investigations
(using a computer to visualize and approximate solutions and their
properties) are gaining respect in the mathematical community, but their
power is not yet fully appreciated by many in the established research
world, nor are they yet accessible to many of those who do appreciate
that power. This modern approach will be integrated with traditional
(non computer-related) discussions via numerical lectures and hands-on
technological demonstrations. Special attention will be given to physical
applications, in order to facilitate our contributing to real-world science
and to provide a source of renewed inspiration for our endeavors.

The driving force for this conference is a desire to produce a highly
usable, in fact essential, reference for those actively researching in the
area and for young mathematicians just starting their careers. Both
groups will benefit greatly from having a single succinct catalog of good
research problems together with an introduction to the most fruitful
relevant mathematical tools and an exhaustive bibliography. A publisher
(American Mathematical Society Journal of Contemporary
Mathematics) has already provisionally accepted a proposal for
publishing this document. The conference will encourage informal
discussion about the future of our field, the potential for it to make
significant contributions to the sciences, and how best to put all this
information in a single proceedings volume.

The focus of the discussed research will be on nonlinear elliptic partial
differential equations, a key application of variational methods.
Nonlinear equations in general are vital to the description of physical
phenomena, and elliptic equations describe (roughly speaking) one third
of these. The efficient harvesting of biological mass, modeling of star
birth and death, and the fundamental equations governing quantum
physics all rely on elliptic equations. Significant progress in this research
area has the potential to make a real difference, scientifically and
economically, to the world at large. The aim is to trigger a vibrant
renewed surge of interest and effort towards solving these types of
problems. The conference and corresponding proceedings volume will
be of equal parts research and educationally oriented. Beginning
researchers will be exposed to research in mathematics to the physical
importance of the field, unsolved problems will be suggested for their
pursuit, and analytical and numerical tools essential to that research will
be introduced. These new researchers who attend or, more generally,
have access to the resulting proceedings volume, will in the long run be
the key contributors. The aim is to encourage informal discussion, where
real mathematics is done, but guide the process with a focus on the
ultimate goal of producing a cohesive document.